MRI: Acquisition of a Superworkstation Cluster for Research and Teaching in Distributed Agent-Based Computing

EIA-9977471
Pullen, J. Mark
Setia, Sanjeev
George Mason University

MRI: Acquisition of a Superworkstation Cluster for Research and Teaching in Distributed Agent-based Computing

This proposal requests funding for a major improvement in the research and teaching instrumentation for an extended research team in the Department of Computer Science of George Mason University. The requested equipment involves a cluster of super-workstations which will expand the current research and teaching infrastructure by an order of magnitude. The equipment will be dedicated to the research and teaching needs at the cutting edge of Distributed Computing and Agent Software.